Silicon Germanium Carbon Alloy Crystal Growth

A fundamental investigation of epitaxial growth and analysis of the properties of SiGeC will be conducted to assess the viability of obtaining strain compensation in SiGe by incorporation of 1 to 2 atomic percent carbon into CVD-grown layers of SiGeC, and thereby raise the energy band gap. In the binary alloy, the presence of about 10 atomic percent Ge in Si introduces strain and lowers the energy gap; in contrast, the addition of only 1 to 2 percent carbon in SiGe is expected to compensate the strain and raise the energy gap. If this is feasible, and the material is thermally stable to temperatures of 950C, it may be possible to fabricate a wide range of structures and advanced devices through band gap engineering of Si/SiGe/SiGeC heterostructures analogous to what has been successfully demonstrated with compound semiconductors, which would represent an important advance in microelectronics. %%% This research will investigate epitaxial crystal growth of silicon germanium carbon alloys to understand basic materials properties, and to assess the possibility of controlling the energy band gap of Si/SiGe/SiGeC heterostructures for utilization of this material in a wide range of advanced silicon-based devices. The ternary alloy, SiGeC, holds the potential of superior device and circuit capability while simplifying process integration.